Regional Institute for Teachers of Science in Grades 4, 5, and 6 in Tidewater Virginia

The purpose of this proposal is to improve the teaching of physical science for 30 elementary school teachers of grades 4, 5, and 6 in the Tidewater area of Virginia. The teachers will be selected in pairs from six-cooperating local school districts to participate in an intensive six-week workshop at Old Dominion University with monthly follow-up seminars during the academic year. Project staff will visit the participants' schools on a regular basis to assess the impact of the program on the students in their classrooms and to consult with science supervisors and principals.